Fracture Micromechanisms for Ferrous Materials in the Ductile-to-Brittle Transition Region (Materials Research)

This is a ROW Research Planning Grant in order to plan a research project for characterizing (1) the micro-mechanisms of fracture, (2) the material parameters, (3) the test parameters, and how they affect fracture in the ductile-to-brittle transition region. Activities include a literature search, formulation of a preliminary plan, consultation with known experts, and the revision to the final research plan.